NSF Young Investigator

This research project will explore principles of computational decision making for single-and multiagent systems based on economic rationality concepts. For multiagent decision making decentralized computational markets supporting distributed resource allocation will be developed. This market-oriented programming approach will be applied to transportation planning, concurrent engineering, and distributed information services.